Student Attendee Support for the International Conference on X-Ray and Inner-Shell Processes (X-99) to be held August 23-27, 1999 in Chicago, Illinois

9907229
Montano
Support is provided for student participation in the 1999 International Conference on X-Rays and Inner Shell Processes to be held in Chicago, Aug 23-27, 1999. The material presented in this conference is timely and strongly overlaps the AMO Program.